Connection to the University of Wisconsin-Milwaukee

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for an OC-3 connection to the enhance and acomodate research needs for the University of Wisconsin-Milwaukee by establishing a connection to the Very High Performance Backbone Network Service (vBNS) via MREN community connection at the Ameritech NAP. Projects in this proposal include: the Advanced Light Source Synchrotron Radiation Facility, high speed arithmetic using the Chinese Remainder Representation, experiments on electron holography, mesoscale modeling in making qualitative precipitation forecasts, two-phase thermal control system for the space station, and scanning tunneling microscopes. With this high performance network capability the University of Wisconsin-Milwaukee will expand current research and collaboration with both academic institutions and federal laboratories. On this project, collaborating institutions include: Lawrence Berkeley Laboratory, Sandia National Laboratory, Oak Ridge National Laboratory, NASA-Goddard, Caltech and the University of Michigan